Conference: Bayou Arithmetic Research Days

Bayou Arithmetic Research Days (BARDs) are one-day mini-conferences aimed at bringing together the vibrant community of students and researchers working in number theory in the Gulf Coast region. BARDs take place about two times a year at universities in Louisiana and neighboring states. The goal is to both bring high-profile speakers to the region and provide students and junior faculty within the region with speaking and networking opportunities. The conference series website is https://bardsmath.com.

Each BARD event features two to three plenary lectures, six to ten lightning talks, and a pre-talk. The plenary lectures are given by visiting researchers and are thematically related; past themes have included arithmetic geometry, analytic theory of L-functions, explicit class field theory, and additive number theory. Lightning talks are short presentations usually given by graduate students (and sometimes by undergraduate students or postdoctoral researchers); lightning talks at BARDs provide many students with their first professional speaking opportunity. The pre-talk is given virtually by a local faculty member prior to the conference and provides background material aimed at students.